2000 MRS Fall Meeting, Symposium C: Anisotropic Nanoparticles-Synthesis, Characterization, and Applications; Boston, MA; November 27-30, 2000

The Materials Research Society Symposium on Anisotropic Nanoparticles - Synthesis, Characterization, and Applications will be held in Boston, MA November 27 - December 1, 2000. The goal of the conference is to facilitate multidisciplinary interactions and information exchange within a broad spectrum of researchers and top post doctoral scholars and graduate students working in priority areas of the broad field of nanoparticles. The NSF funds will be used to offset expenses associated with attending the symposium for graduate students, post doctoral scholars, and junior faculty, many of whom will present posters.
%%%
The nanoscience and technology community continues to have direct impact on important technological areas that are crucial to advancing society through the design, synthesis and application new nanoscaled materials involved in the assembly of value-added materials and devices from nanoassembled anisotropic particles with benefits to the biotechnology and computer industries. Students educated and trained in these multidisciplinary areas compete very well in the job market and go on to contribute in many significant ways to the global economy.